Trace Gas Measurements over the South Pole Using MM-Wave Spectroscopy

Abstract 9705667 de Zafra Many atmospheric gases radiate energy in the millimeter wavelength region of the radio spectrum, with each species have a spectrum which is unique to it. The shape of each individual species' spectrum provides information on the temperature and pressure of the gas; thus, one can use the mm wave spectrum of the atmosphere to determine the relative abundances and height distribution of a number of trace species. In this particular investigation, mm spectroscope will be used to monitor ozone , carbon monoxide, nitrous oxide, nitric acid, water vapor and nitrogen dioxide above South Pole, Antarctica over the period of a year. Several of these gases play important roles in the formation of the annual Antarctic ozone hole, while others, particularly water vapor and carbon monoxide, can provide information of the dynamics, particularly vertical transport, of the upper stratosphere and mesosphere. ***